The Topology of Generalized Manifolds

DMS-0071693
Washington Mio and John Bryant

Topological n-manifolds are spaces locally homeomorphic to
Euclidean n-space. The simple local structure of manifolds
lends them a very special role in mathematics since phenomena
modeled on these spaces are amenable to a vast array of
methods and tools. The study of the structure of manifolds
has been an important theme in geometric topology for many
decades. More recently, spaces called generalized manifolds,
with the large-scale properties of topological manifolds but
very intricate local structure, were discovered by the proposers
in joint work with S. Ferry and S. Weinberger. Previously
conjectured not to exist, the first theoretical evidence that
they might exist appeared in the work of F. Quinn. This
project proposes to continue the investigation of the topology
of generalized manifolds. This study is intimately related to
important structural properties of manifolds, such as the
conjectural rigidity of aspherical manifolds and the
Siebenmann periodicity phenomenon. Other indications of
the relevance of these spaces are present in areas as
diverse as Dynamical Systems, Geometric Group Theory and C-star-algebras.

The long-term goal of this project is to probe the local
structure of generalized manifolds and establish a deeper
parallel between generalized manifolds and topological
manifolds by showing that these exotic spaces satisfy most
of the fundamental properties of manifolds, such as topological homogeneity, the s-cobordism theorem, and the alpha-approximation theorem. More immediate goals of the proposed investigation
include the study of control improvement problems, submanifold
and map transversality questions, normal bundle and embedding
problems for generalized manifolds. These are elements that
arise naturally in the study of the core problems, and they
also represent important ramifications of independent interest.
The main technique to be employed is controlled topology,
including controlled homotopy theory, controlled K-theory,
and controlled surgery applied to patch representations of
generalized manifolds and, ultimately, to generalized manifolds themselves.